A New High Surface Area Anode for the Synthesis of Chlorate and Hypochlorite

This Small Business Innovation Research (SBIR) Phase I project is in the general area of analytical and surface chemistry and in the subfields of electrosynthesis and electrocatalysis. The thrust of this experimental effort is to determine the suitability of fluorinated and unfluorinated high surface area graphites as anode materials for the electrosynthesis of chlorate and hypochlorite chemicals. The number of stable, inexpensive anode materials available for the electrosythesis of chemicals, especially under highly oxidative conditions, is quite limited. The effectiveness of these high surface area graphite electrodes relative to that of conventional dimensionally stable anodes (DSAs) ıRuO2 on Ti! and Pt/Ir coated titanium will be evaluated for these two industrially important electrochemical processes. Cell operating requirements and conversion efficiencies will be compared. The electrode materials whose feasibility will be evaluated in this Phase I research could provide equivalent or better performance than DSA electrodes, resulting in lower capital costs for on-site production of these desirable chemicals. Following demonstration of feasibility in Phase I, research in a subsequent Phase II undertaking will continue these studies in larger scale electrochemical flow cells.